TC: Medium: Collaborative Research: Unification Laboratory: Increasing the Power of Cryptographic Protocol Analysis Tools

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The project develops cryptographic protocol reasoning techniques
that take into account algebraic properties of cryptosystems.
Traditionally, formal methods for cryptographic protocol
verification view cryptographic operations as a black box,
ignoring the properties of cryptographic algorithms that can be
exploited to design attacks. The proposed research uses a novel
approach based on equational unification to build new more
expressive and efficient search algorithms for algebraic theories
relevant to cryptographic protocols. Equational unification gives
a compact representation of all circumstances under which two
different terms correspond to the same behavior. The algorithms
are implemented and integrated into Maude-NPA, a system that has
been successful in symbolic protocol analysis. It is demonstrated
that Maude-NPA when enriched with such powerful unification
algorithms can analyze protocols and ensure their reliability,
which could not be done otherwise.

Improved techniques for analyzing security are helpful both in
assuring that systems are free of bugs, and in speeding up the
acceptance of new systems based on the confidence gained by a
formal analysis. This research will lead to the design and
implementation of next generation tools for protocol analysis.
Algorithms developed will be made available to researchers as a
library suitable for use with protocol analysis tools. Tools from
the project will help students understand concepts relevant to
protocol design and get hands-on experience. Equational
unification for algebraic theories is not only useful for
protocol analysis, but also for program analysis in general, thus
making the results of this project to be widely relevant.